Reconstruction Techniques for Limited-Data Tomography of Turbulent Fields

Optical tomography will be applied to the measurement of turbulent mixing fields and flames, providing multi-dimensional quantitative measurements and three-dimensional flow imaging. This project will develop a formalism for evaluating limited-data reconstruction techniques, determine the available information from various experimental geometries, and develop new algorithms which incorporate constraints based on turbulence theory. Approaches to the problem include artifact and null-space estimation, super-resolution, and the use of statistical constraints. Research will also explore the applicability of parallel computation and micro-computers for laboratory implementation. Simulated object sets will be used for verification.